Science Technology Engineering Program (STEP) Up for Youth -- ASCEND Project

California State University-Los Angeles seeks funding for a 36-month endeavor for an after school "Science, Technology and Engineering Program (STEP) Up for Youth" ASCEND project. "STEP Up for Youth" is a community-based, informal science exploration and discovery initiative targeting middle school youths and their parents in disadvantaged communities of Los Angeles. The project provides participants with standards-based, hands-on science activities and opportunities for participation in science clubs. They are also provided the opportunity for leadership roles in building institutionalized programs for furthering science literacy in their respective communities. The project is a collaborative effort involving California State University-Los Angeles, the NASA Jet Propulsion Laboratory, The California Science Center, The Boeing Company and the Los Angeles Unified School District, in partnership with community-based organizations, service providers and neighborhood businesses.